Rapid Vertical Sampling Studies of Energy Balances and Fluxes in Stably Stratified Homogeneous Turbulent Shear Flows

9871857 Van Atta The project is for a laboratory study of stratified turbulent flow. The measurements consist of rapid vertical profiling and sampling, rather than Eulerian point measurements. The study will allow assessment of individual terms in the turbulent kinetic energy and fluctuating potential energy balances, thus providing vital information for understanding ocean micro-structure measurements and ocean mixing.